Stability and Finiteness Problems in Analysis

The first question motivating the subject of our project is the
following: Let f be a holomorphic function in a neighborhood of the
origin of affine n-space. Can the singularities of f(z)=0 get "worse"
under small perturbations of the function f? By "get worse" we mean:
Can the critical exponent of f get smaller, where the critical
exponent is the supremum of all exponents d for which the absolute
value of f raised to the power -d is locally integrable. This
question, and its effective counterpart, play an important role in
proving the existence of Kahler-Einstein metrics on certain Fano
manifolds (as has been recently demonstrated by Demailly and Kollar).
We plan to apply our method of "algebraic estimates" to this
problem. A related question which we will pursue is the following: Let
R be a rational function with complex coefficients. How do we decide
if R is in L^p? To what extent is the L^p norm of R a continuous
function of its coefficients? The third motivating question concerns
decay rates of oscillatory integral operators is one which has
attracted much aattention is recent years: What is the best decay rate
of such operators? We have been able to attack this problem in the
multilinear one-dimensional case when the phase function is a
polynomial, and have succeeded in finding the best decay rate (modulo
logarithimic terms). Our method employs in an improved version of the
curved trapezoid technique developed by Phong-Stein. We plan to apply
this method to the higher dimensional case and in the case of damped
operators.

The main themes of this proposal - oscillatory and singular integrals
and the method of stationary phase - are central to the field of
classical analysis, with foundational results dating back to the
nineteenth century: Harmonic Analysis plays a critical role in the
solution of wide spectrum of problems in physics and applied
mathematics - solving the heat equation, wave equation, Laplace
equation, Schrodinger equation all make use of the Fourier analysis
technique. The use of harmonic analysis in X-ray diffraction is
indispensible to determining the structure of large molecules (such as
DNA), and the Fourier transform method in signal processing is at the
core of much of the modern technology involving the transfer of
information by electronic means. In modern applications to a variety
of questions, traditional techniques do not suffice and the need for a
more general theory has arisen. In particular, the issues of bounds
and stability for oscillatory integrals and operators, and the related
problem of regularity of Radon transforms have been the focus of much
recent work. The principal investigator, working with D.H. Phong
(Columbia University) and Elias M. Stein (Princeton University), plans
to continue investigating this circle of problems using the tools from
geometry and analysis which were recently developed in our joint work.